Instrumentation for Dating and Stratigraphic Assessment of Archaeological Sites Using Amino Acid Diagenesis in Carbonate Fossils

Hare This grant provides partial support to permit the Carnegie Institute of Washington to purchase a high-performance liquid chromatograph, gas chromatograph, combined gas chromatograph/mass spectrometer and an autosampler for an amino acid analyzer. These instruments will be used by Dr. P Edgar Hare and his colleagues to expand their research into the chemical changes in organic matter in fossil mollusks and ostrich egg shell. For a number of years these researchers have worked to use such reactions as a chemical clock to date sites of archaeological significance. The methods they have developed are particularly important for sites too old (older than ca. 45,000 years) and too young (younger than ca. 400 years) for radiocarbon dating. In particular the group will focus on the development and application of amino acid racemization and other digenetic reactions in ostrich eggshell for dating African and Asian archaeological sites. They will attempt to develop simultaneous equations for both age and mean temperature history. They will also study digenetic changes other than racemization for the dating of very old sites and continue to improve the use of aspartic acid racemization for dating recent occurrences. The techniques will be applied to a number of sites including late Holocene cores from Lake Titicaca, Bolivia, archaeological sites in central Texas as well as Nile Delta cores. Accurate dates are crucial in archaeological as well as climatological, geological and other environmentally related sciences. Although a number of techniques such as radiocarbon and argon/argon dating are available, these and others have limitations both in the kinds of materials they require and the time range they cover. Ostrich eggshell and many types of mollusc shell are present in a wide range of archaeological sites. They also occur naturally in a wide range of geological situations. The potential to obtain accurate dates from such materials has widespread significance acr oss a range of disciplines.